MRI: Nature of Eukaryotic Translational Respress

Both normal and transformed cells regulate the expression of some genes at the level of translation. Understanding the molecular mechanisms underlying these controls could give valuable insights into why certain cells lose the ability to control processes such as growth. The long term objectives here are to determine: (a) the role played by translational repressors in regulating specific gene expression; (b) the repressors; (c) how eukaryotes use this form of translational regulation to control essential cell processes, such as growth, development, and responses to stress conditions. These projects are focused on the study of translational repressors specific towards ferritin mRNA. The specific aims are to: 1) Purify repressors of ferritin mRNA translation; 2) Determine the physiological role of these repressors; 3) Study the mechanism of derepression of ferritin mRNA translation; 4) Isolate and characterize cDNA and genomic clones of ferritin repressors; 5) Determine the pattern of expression of repressor genes. Ferritin translational repressors will be purified using standard enzyme purification techniques. Translational control mechanisms can have a major influence on the final level of expression of specific genes in eukaryotes. The list of examples of genes whose expression is controlled at least in part, is growing. Each of the examples raises essentially the same question: how does the cell choose to (or choose not to) translate a particular messenger RNA over another? In certain cases this has been answered, however for most of the mRNAs the control of translation is poorly understood. Dr. Walden's work should help this understanding.